Conference: When Analysis Meets Geometry

This award will support the conference "When Analysis Meets Geometry", to be held in Santa Cruz, California, from May 18 - 21, 2026. The conference will feature approximately 20 invited lectures by leading international experts in analysis and differential geometry. Its primary goal is to bring together researchers of international stature to present recent advances at the forefront of these closely connected fields. The meeting will also provide valuable opportunities for early-career researchers to present their work and to engage in meaningful interactions with senior mathematicians.

The conference focuses on cutting-edge developments at the intersection of geometry and analysis, highlighting recent breakthroughs across several key themes. In recent years, there have been tremendous breakthroughs and groundbreaking results in various directions, including geometry of Einstein metrics, geometric flows, fully nonlinear PDEs in differential geometry, geometric scattering theory and applications, and other areas. By fostering dialogue across these areas, the conference aims to stimulate new collaborations and generate innovative research directions. In addition to disseminating significant mathematical advances, the event places strong emphasis on professional development and research training for graduate students, postdoctoral scholars, and junior faculty. Here is the website link to the conference: https://sites.google.com/view/capitola2026/home